Mount Feather Sirius Group Workshop and Collaborative Sample Analysis and Publication

This award is for the support of a workshop designed to objectively describe, distribute and sample core and outcrop material recently recovered from the Sirius Group deposit at Mt. Feather, Antarctica. The Mt. Feather deposit has been extensively studied by other investigators and it is thought to be one of the key sites that will help resolve the debate about the Pliocene glacial and climatic history of Antarctica. Recently, a flurry of international meetings and publications has seen criticism of the techniques, findings, and reproducibility of data sets from investigations pertaining to this history. The material sampled during this workshop will be distributed to investigators who have registered interest in the project and results from this work will be published in a communal report which will form the basis for a group publication on the combined findings of all investigators. Separate concurrent publications will include a description of the sample collection techniques and the geologic setting of the deposit.